CEDAR: The Electric Field Profile of the Equatorial Electrojet

The investigators will develop a new spaced-radar technique to study coupling processes and energetics taking place in the equatorial electrojet. With this technique, it will be possible to measure the complete altitude profile of the electric field in the electrojet as a function of time. The technique is based on a well-established technique that uses the Doppler velocity of radar echoes from the electrojet measured at two or more locations. The two radars will be located on the islands of Pohnpei and Majuro. The data will be used to study the electrical current in the electrojet, the sources of variability in the electrojet, and the role of gravity waves in modifying the electrojet.